Utilization of Variational Methods in Nonlinear IrreversibleEngineering Problems

The objective of this three-year renewal of a U.S.-Yugoslav cooperative research project in mechanical engineering between Bozidar Vujanovic of the University of Novi Sad and Stanley Jones from the University of Alabama, is to study the variational methods (direct solution, conservation laws and Noether's theorem) applied to non conservative engineering systems. This grant affords the opportunity of linking oen of the major European research groups with U.s. engineer. Previous collaboration has resulted in significant number of joint publications. This project was approved by the U.S.-Yugoslav Joint Board on Cooperation in Science and Technology and is supported through a joint fund consisting of matching contributions from the U.S. and Yugoslav governments. The U.S. contribution is provided annually by the Department of State. No NSF funds are involved. The grants are composed principally of Yugoslav dinars and made to the principal Yugoslav institute. Grants include travel for U.S. scientists to Yugoslavia and a modest dollar allowance for Yugoslav scientists' living expenses in the U.S.